Arithmetic Siegel-Weil Formulas and Arithmetic Theta Lifting

This project involves the connections between generating functions
for height pairings of arithmetic cycles on certain Shimura varieties,
on the one hand, and second terms in the Laurent expansions of
elliptic modular and Siegel modular Eisenstein series
at certain critical points, on the other. The generating functions can be viewed as
arithmetic analogues of theta functions and can be use to define
arithmetic analogues of the classical theta correspondence, now taking certain
types of modular forms to elements of arithmetic Chow groups.
A main goal is to prove analogues of Rallis's inner product formula
for these arithmetic theta lifts, which will now involve derivatives
of L-functions. Thus, it is hoped that one may ultimately obtain
information about higher dimensional analogues of the Gross-Zagier formula and the Birch-Swinnerton-Dyer
conjecture.

In the later part of the 20th century significant advances were
made in developing a `number theoretic' geometry, in which an additional
dimension is added to carry information involving the interaction
between the geometry and prime numbers. To a point on such a space,
one can attach a number call its height, which is a measure of its
`arithmetic complexity'. More generally, heights can be defined
for higher dimensional objects, curves on surfaces, for example.
The present project studies combinatorial relations among such heights,
which reflect hidden structure carried by the spaces
of `number theoretic' geometry.